Collaborative Research: Predictive Risk Investigation SysteM (PRISM) for Multi-layer Dynamic Interconnection Analysis

The natural-human world is characterized by highly interconnected systems, in which a single discipline is not equipped to identify broader signs of systemic risk and mitigation targets. For example, what risks in agriculture, ecology, energy, finance and hydrology are heightened by climate variability and change? How might risks in, for example, space weather, be connected with energy, water and finance? Recent advances in computing and data science, and the data revolution in each of these domains have now provided a means to address these questions. The investigators jointly establish the PRISM Cooperative Institute for pioneering the integration of large-scale, multi-resolution, dynamic data across different domains to improve the prediction of risks (potentials for extreme outcomes and system failures). The investigators' vision is to develop a trans-domain framework that harnesses big data in the context of domain expertise to discover new critical risk indicators, holistically identify their interconnections, predict future risks and spillover potential, and to measure systemic risk broadly. The investigators will work with stakeholders to ultimately create early warnings and targets for critical risk mitigation and grow preparedness for devastating events worldwide; form wide and unique partnerships to educate the next generation of data scientists through postdoctoral researcher and student exchanges, research retreats, and workshops; and broaden participation through recruiting and training of those under-represented in STEM, including women and underrepresented minority students, and impact on stakeholder communities via methods, tools and datasets enabled by PRISM Data Library web services.

The PRISM Cooperative Institute's data-intensive cross-disciplinary research directions include: (i) Critical Risk Indicators (CRIs); The investigators define CRIs as quantifiable information specifically associated with cumulative or acute risk exposure to devastating, ruinous losses resulting from a disastrous (cumulative) activity or a catastrophic event. PRISM aims to identify critical risks and existing indicators in many domains, and develop new CRIs by harnessing the data revolution; (ii) Dynamic Risk Interconnections; The investigators will dynamically model and forecast CRIs and PRISM aims to robustly identify a sparse, interpretable lead-lag risk dependence structure of critical societal risks, using state-of-the-art methods to accommodate CRI complexities such as nonstationary, spatiotemporal, and multi-resolution attributes; (iii) Systemic Risk Indicators (SRIs); PRISM will model trans-domain systemic risk, by forecasting critical risk spillovers and via the creation of SRIs for facilitating stakeholder intervention analysis; (iv) Validation & Stakeholder Engagement; The investigators will deploy the PRISM analytical framework on integrative case studies with distinct risk exposure (acute versus cumulative) and catastrophe characteristics (immediate versus sustained), and will solicit regular input from key stakeholders regarding critical risks and their decision variables, to better inform their operational understanding of policy versus practice.

This project is part of the National Science Foundation's Harnessing the Data Revolution (HDR) Big Idea activity, and is jointly supported by HDR and the Division of Mathematical Sciences within the NSF Directorate of Mathematical and Physical Sciences.